CONFERENCE GRANT: BUILDING THE PIPELINE OF HBCU EVALUATORS THROUGH COLLABORATIVE PARTNERSHIPS

The purpose of the proposed project is to build the capacity of Historically Black Colleges and
Universities (HBCUs) in the teaching and practice of evaluation, with a focus on STEM
education programs. The goal is to diversify and build leadership in the field, as well as
strengthen evaluator skills in assessing academic programs focused on STEM with multiethnic
and underrepresented populations. This will be accomplished through three major activities: (1) a
conference of HBCU faculty evaluators and evaluation consultants to assess their current program
evaluation and related research and teaching activities and to identify effective models of
evaluation capacity building and networking, (2) the creation of a communications network and
mechanism for information sharing regarding evaluation instruction and practice among HBCUs
and between HBCUs and other higher education institutions, and (3) a meeting with key leaders
from agencies and organizations that promote diversity in evaluation across a variety of
educational levels, disciplines and contexts to share the results of the discussions and networking
outlined above (NSF, AEA, AERA and APA). The project outcome will be the development of
an action plan with recommendations for building evaluation capacity at these institutions and
increasing minority faculty and students in the evaluation profession.